Vinyl Isocyanates in Alkaloid Synthesis

The focus of this research is the use of carbene-isocyanate cycloaddition methodology for the preparation of heterocycles The hydroindolone products derived from the cycloadditions are common features of many structurally elaborate alkaloids. Additional studies involving the reactions of TMSCN with vinyl isocyanates, radical-based lactam forming reactions and the use of vinyl isocyanides as umpolung equivalents of vinyl isocyanates will also be carried out. With this renewal award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. James H. Rigby of the Department of Chemistry at Wayne State University. Professor Rigby will focus his work on using vinyl isocyanates as key reactants for the development of synthetic methodology leading to the preparation of alkaloids and other heterocyclic compounds having interesting biological properties..